Biotechnology Instrumentation and Laboratory Improvement: Purchase of an HPLC System for Biotechnology

This project upgrades the status of the biotechnology laboratory in order to serve the specific training needs of the biotechnology private sector. Students graduating with a degree in biotechnology from the college are conducting analyses using the HPLC in the following areas of biotechnology: (1) analysis, separation, and purification of polypeptides and oligonucleotides proteins including protein variants; (2) pharmaceutical compounds such as water soluble vitamins, anticonvulsants, antihistamines, cateholarnines, antidepressants, and polyaromaic hydrocarbons; (3) compounds sometimes found in air, water, or other natural environments that need to be monitored to maintain a healthy environment; and (4) compounds found in the food industry.